NEWTON'S APPLE: A Multimedia Collection

9452852 Hudson ABSTRACT Twin Cities Public Television proposes to develop, test, and distribute a comprehensive multimedia collection and learning system which will accompany the Newton's Apple television production. The multimedia collection will consist of videodiscs, matching videotape of selected Newton's Apple segments, CD ROMs, educator support materials, and computer software. The project also will include a component which will train educators to integrate the program into local curriculum. The materials are designed to be a comprehensive learning system that focuses on the acquisition of fundamental science concepts and skills which are adaptable to a wide variety of instructional situations and the motivation of learners to study science. The Newton's Apple Multimedia Collection will be disseminated through the National Geographic Society, Inc. and special interest group such as the National Urban League, the National Association for Bilingual Education and the National Council of La Raza. Summer institutes and short courses will be co-sponsored by the Sciene Museum of Minnesota and the National Science Teachers Association. .